NAVIGATION: A Cultural and Technological Look at Finding One's Way

The Exploratorium proposes to create a multidimensional exhibition on the theme of navigation. The exhibition proper will contain approximately 20 new interactive exhibits dealing with topics of human orientation, wayfinding/exploration, the importance of time in navigation, maps and navigation traditions. Alongside the exhibits we will display real navigational artifacts borrowed from other museums. We have identified approximately 40 existing exhibits which, while not in the main show, will receive textual modification to show their relation to navigational topics. In addition to the exhibition of artifacts and interactive exhibits, we will present a series of lectures, theme weekends, and demonstrations of navigational techniques. During the run of the show we will host a Symposium On The American Encounter wherein we will hold an open forum of lectures and discussion of historical, anthropological and social consequences of cultural encounter on the North American Continent. We will produce both a brochure and a high quality catalog for this show. In addition we will create written "pathways" of organization of this museum-wide show to bring to focus different features and approaches to navigation. Our education departments will play a leading role in creating more formal programs for our visitors. The physical show will be reproduced in a travelling version to tour nine venues in the three years following its opening at the Exploratorium. We will collect the results of our researchers in a dissemination package to be made available to others in the field.